Synthesis and Studies of Magnetic Layered Host-Guest Materials

9311597 Nocera This proposal is motivated by the challenge of rationally designing magnetic substances. This research will exploit the structural control available in layered materials to study the interplay between molecular interactions and magnetic coupling. The intracrystalline environments of phosphate layered hosts will provide the scaffolding to position organic inorganic intercalants in well-defined relationships to the layers and to each other. Magnetic intercalates of layered phosphate and phosphonate hosts will be synthesized by redox and ion-exchange intercalation methods. Insertion of specially designed isostructural organic and inorganic sets of para- or diamagnetic guests will permit the probe of intralayer, layer-guest, guest-guest, and higher order magnetic interactions. In the case of paramagnetic intercalants, the roles of the open-shell orbitals' shape and alignment relative to the layers can be assessed in connection with quest orientation within the galleries. Finally, an exploratory path is outlined to assemble magnetic host layers about paramagnetic quests. As this proposal addresses structural issues of magnetic coupling, new strategies for the rational design of materials with magnetically tailored properties will emerge. Additionally, the structure- magnetism correlations assembled in this layered magnetic materials synthesis program will provide impetus for the development of new predictive structural theories of magnetism. Although the primary focus of the proposed work is synthetic, development of mechanistic models will be pursued as needed within an established collaboration with the condensed matter physics group at the University. ***